Growth, Product Formation and Cell Differentiation in Plant Cell Biofilms

This proposal seeks to study: l) The growth and product formation kinetics of plant cell biofilms grown on inert support materials. A mathematical model is to be formulated and tested which describes film growth and secondary metabolite formation by plant cells with and without substrate diffusion limitations. 2) The influence of biofilm thickness and micro-environmental conditions within the film on cell differentiation and secondary metabolite formation. The plant Catharanthus roseus and its secondary metabolite, ajmalicine (a pharmaceutical used to treat blood circulation problems), has been selected as a model system for this study. The proposed use of plant cell biofilm cultures is new and unique and may overcome the problems of cell-cell contact and control of the micro-environmental conditions thought to be necessary for maintaining cell differentiation and the hyothesized higher product yields. It is suggested that the proposed novel culturing technique could result in a better culturing technique for other types of plant cells. The Principal Investigator is considered to be wall qualified to carry out the proposed research and I recommend funding of this proposal for two years in accordance with the submitted budget.